Analysis and Design of FRP Grating/Concrete Composite Structural Slabs

This project will investigate the analysis and experimental verification for the use of pultruded fiber reinforced plastic (FRP) in slabs of concrete. The project will be cost shared by several industries and the Federal Highway Administration.